Task Order No. 62 Workshop Support: "Sensors and Sensor Systems for Civil Structures, Washington, DC (April 4-5, 1944) (Contract CPO-9216105)

9411996 King This Task Order is for Workshop Support for the Engineering Systems Program, Workshop on Sensors and Sensor Systems for Civil Structures, Washington, DC area (April 4-5, 1994). ***